CSR-PDOS: Fast, Consistent Distributed File Systems through Operating System Speculation

This project is investigating how generic support for speculative
execution in a commodity operating system can improve the performance
and consistency of remote data access. Rather than block applications
during a remote file system operation, the operating system
checkpoints the state of the calling process, predicts the result of
the remote operation, and speculatively resumes execution based upon
the predicted results. If the speculation proves correct, the
checkpoint is discarded; if the speculation is incorrect, the calling
process is restored to the checkpoint and the operation retried. The
operating system guarantees safe execution by preventing speculative
processes from externalizing output until the speculations upon which
that output depends have proven correct. By tracking causal
dependencies created through inter-process communication, the
operating system allows multiple processes to safely share speculative
state. In addition to file systems, this project is exploring uses of
speculation in diverse areas, including cyber-foraging, remote
desktops, and software installation.

The major impact of this project lies in improving the performance,
consistency guarantees, and safety of current distributed file
systems. The project is developing speculative versions of NFS, AFS
and other distributed file systems that perform substantially better
than current versions of these file systems. At the same time, these
versions provide stronger consistency and safety guarantees to
applications. The software artifacts developed as part of this
project, including a modifed version of Linux that supports
speculation, are being released to the open-source community.
Additionally, educational initiatives are helping train the next
generation of systems software developers.